New Baccalaureate Degrees and STEM Program Improvement at Salish Kootenai College

Salish Kootenai College will increase the number of baccalaureate STEM degree offerings at Salish Kootenai College and improve and enhance the existing STEM course and degree offerings of SKC by: creating a new B.S. in Biological and Chemical Sciences degree program; developing and introducing a new B.S. in Computer Engineering degree program; developing and introducing the new science, engineering, mathematics course offerings needed,using curricula in these courses that incorporate rigorous mathematical approaches; developing and introducing new course offerings to enable students graduating from the existing B.S. in Information Technology degree program to successfully enter graduate programs in computer science and information technology; modifying existing science, technology, and engineering course offerings to more fully incorporate rigorous mathematical approaches; and offering internship experiences to students pursuing STEM baccalaureate degrees that are designed to bridge the transition into the STEM workforce or into STEM graduate programs.